Presidential Young Investigator Award: Construction Automation

Research activities for this Presidential Young Investigator Award include two areas within the Construction Engineering and Construction Automation fields: (1) Design of construction work systems for the application of advanced robotics, and (2) application of expert systems to contractor prequalification process. The first of these research areas focuses on the restructuring of the traditional industrial construction processes to meet the capabilities and expose the advantages of automated construction equipment, either sensor-driven or numerically controlled. After the design of the new processes performance of the automated construction equipment may be estimated through computer simulations of relevant work parameters. The second research area recently undertaken by the investigator pertains to the application of expert system methodology to the analysis of construction contractor prequalification processes. The work concentrates on the creation and structure of the heuristics-based body of knowledge and knowledge engineering for a prequalification expert system. The investigator is also involved in the development of a prototype of such a system as an aid to owners and developers.